The control of photosynthetic quantum yield of phytoplankton by light intensity and diapycnal nutrient flux

Primary production in the ocean is probably the least known part of the ocean's carbon cycle. One reason that primary production is little known is the lack of understanding of the geographical and temporal variability in phytoplankton physiology. For example it is only recently that the importance has been revealed, of the so-called photoprotectant pigments, pigments that, in effect, shield the photosynthetic apparatus from too much sunlight. This project will investigate the geographic and temporal variability of a fundamental property of oceanic photosynthesis: the quantum yield, or the ratio of the available light to the amount of carbon fixed in photosynthesis. The PIs propose an hypothesis based on earlier measurements, that in the lower parts of the euphotic zone in the stratified ocean, the upward flux of nutrients regulates the value of the quantum yield, while in the upper parts, irradiance governs its value, through the pigment composition of the phytoplankton. This hypothesis will be tested by making estimates of the quantum yield's maximum value through very careful and comprehensive measurements of the bio-optical properties and species composition of the phytoplankton, as well as the submarine light environment, hydrography, and nutrients. These measurements will be along both temporal and spatial gradients in the ocean to create the basis for environmental regulation of quantum yield. These measurements will be used to establish precisely how the maximum value of the quantum yield is regulated by solar flux and plant nutrients. This research provides a mechanism to understand how the processes of nutrient supply and light affect the physiology of natural populations of phytoplankton, a long-standing problem in biological oceanography. It also provides a means for improving the modeling primary productivity, including estimating productivity in the global ocean from space.

The research will aid in developing a better understanding of the role of phytoplankton in the global carbon cycle, and also the affects of climate change on primary production in the ocean. The project provides for the training of a post-doc and one or more graduate students, and results will be disseminated public web sites that serve an educational function.